ROA: Comparative Plant-Herbivore-Enemy Interactions in a Monophyletic Group of Six Sawfly Species

The objective of this research is to advance ecological theory by starting from an empirical pattern of feeding types among six sawfly herbivore species, and developing a mechanistic understanding of how the pattern relates to differences among species in their relationships with host plants, and natural enemies, and their resultant population dynamics. The pattern involves a gradient of specificity in response to plant resources from a highly specific shoot-galling sawfly to a more generalized leaf-feeding sawfly. Fourteen hypotheses address aspects of specificity in terms of within-plant variation, plant genotype, plan stree, plant age, and among plant species, in addition to the relative importance of induced plant defenses, herbivore competition, population stability, the role of natural enemies and three trophic-level interactions, and the distribution and colonization ability of the sawflies. Methods will employ field observations and experimental studies using potted willow plants to investigate questions on life history characteristics of the species, the distribution and abundance of species, the relationships between female preference in oviposition and consequent larval performance, the colonizing ability of sawflies and their parasitoids, and the role of induced plant defenses. This research is aimed at advancing knowledge by using a strongly comparative approach on a monophyletic group of six sawfly species which range from species with stable population dynamics to those that are more eruptive. The mechanistic understanding of linkage among many traits of these plant-herbivore-enemy interactions is likely to yield an advance in ecological theory relating to such systems, with probable application to agricultural and forest systems.